Building Opportunities for STEM Students Through Scholarships and High Impact Practices

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at Wofford College. A total of 22 scholars pursuing bachelor’s degrees in Biology, Chemistry, Mathematics, Computer Science, and Physics will receive scholarships for up to five years. Scholars will receive faculty and peer mentoring and the project will build strong scholar cohorts through student-centered advising and campus engagement. Additional activities for scholars include career-focused high impact practices, such as undergraduate research.

The overall goal of this Track 1 project is to increase STEM degree completion of academically talented, low-income undergraduates with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the local workforce in key areas of need. The project will be assessed by an experienced evaluator that will examine how scholars experience their cohort activities, and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.